Undergraduate Research, Development, and Engineering Experiences With Computer and Information Systems for Advanced Technology

This is an award resulting from a submission in response to Program Announcement NSF 87-63, Research Experience for Undergraduates, 1987. Under this award The University of Alabama will provide nineteen undergraduate students with training and support while they participate in ongoing research projects in the University's Resident Research Program. The award recognizes the importance of hands-on experience in active research for training undergraduates for careers in mathematics, science and engineering, and that too few such experiences are now available. The University recruited some of the students from other institutions, in order to broaden the base for attracting students to scientific careers.